Extending Plus Closure

In the study of local rings of equicharacteristic p, the tight closure
has proved very useful. This closure also extends nicely to local rings
of equicharacteristic zero. Unfortunately this closure does not
naturally extend to mixed characteristic rings. This project is designed
to fill this void. In earlier work, the principal investigator defined
several variants of an extended plus closure. As the name suggests,
these closures, which coincide with tight closure in equicharacteristic
p, are based upon the plus closure of an ideal, the set of elements
which are in the extension of the ideal in some integral extension of
the original ring. In the earlier work, a number of properties of these
closures were demonstrated. Most notably, the principal investigator has
demonstrated that the colon-capturing property implies that ideals in
regular rings are closed and also that the colon-capturing property does
in fact hold in dimension three. Hence the Direct Summand Conjecture is
a theorem in dimension three. A key objective of the current project is
to extend these results to dimension four and above. A completely
successful program would establish that one of these extended plus
closures - or a close relative - satisfies all of the requirements
suggested by Huneke for a mixed characteristic analog of tight closure.
It would also determine whether or not three particular rings of
interest are Cohen-Macaulay. The most compelling of the three is the
absolute integral closure of a complete mixed characteristic local
domain of dimension three. For equicharacteristic complete local domains
and all complete local domains of dimension not equal to three, the
answer is already known.

One of the most fundamental subjects in algebra is the understanding of
the concepts of ideals and modules in local rings. For those local
rings which contain a field, the notion of tight closure has evolved as
a way to give a unified presentation - and a simplified one - for many
of the known properties of these objects. As a natural byproduct, it has
led to the discovery of new properties. Understanding of local rings
which do not contain a field has always lagged behind. The principal
investigator has proposed several closely related and promising
candidates to play the role of tight closure in the alternate setting.
These candidates have already led to one significant new result. In this
project, the investigator will continue his efforts to determine which
is the best candidate and to what extent the new closures fill the void.